Research Experiences for Undergraduates in Chemistry at the University of Minnesota

Professor Wayland E. Noland and other members of the Chemistry Department at the University of Minnesota are being supported to conduct a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1991-93, eight undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Some of the research projects involve the properties of micelles, far infrared spectroscopy, polymer science, and synthesis of organometallic compounds and of antifungal agents. The program will close with an all-day symposium at which students will present formal papers on their research.